Science in Action

St. Olaf College will initiate a 2-week multidisciplinary residential Young Scholars project for 30 students in 9th grade. Approximately 20 faculty members in the departments of biology, chemistry, mathematics, physics, and psychology will participate in this project. The theme of the program is LIGHT AND VISION and will consist of classroom activities including lectures/discussions and laboratories, research projects, and field trips. Participants will explore career options in the sciences and will work to achieve understanding of ethical considerations scientists face. Follow-up activities will include student presentations based on their Young Scholars workshop experience to students and teachers in their home schools. Each participant will also conduct a short-term experiment at their home school in the Fall under the guidance of a St. Olaf faculty person and their 9th grade science teacher.